Fluidization VIII: 1995 International Conference to be held on May 14, 1995 in Tours, France

ABSTRACT CTS-9510258 It is proposed to provide partial travel support to 19 U.S. academic researchers to participate and present papers at the 8th International Fluidization Conference. The conference is co-organize by the U.S. Engineering Foundation. This Conference, to be held on May 14-19, 1995 in Tours, France, is most prestigious in the specific research field, and it is held each three years in different countries. About 160 papers selected from 30 countries will be presented. The meeting is the forum for the latest scientific and technological developments in fluidized beds, an industrial process of importance in chemical plants, energy production, minerals and materialq processing. The proceedings of the Conference will be published.